A Genetic Model for SPAM1

The project is designed to address two important problems in reproductive biology. The first deals with the biochemical equivalence of sperm due to transcript sharing in developing spermatids. It is proposed to determine if the spermatid-expressed Sperm Adhesion Molecule 1(Spam 1) gene product (a membrane protein with bifunctional roles in fertilization) is not shared among conjoined spermatids, resulting in biochemically different sperm in heterozygotes and hemizygotes. The latter will have a Spam 1 null mutation or a transgene and will be constructed using gene targeting (or "knockout") and transgenic technologies. The heterozygotes will carry a Robertsonian translocation [Rb(6.16)] shown to have a Spam 1 mutant allele associated with decreased mRNA, protein and fertilizing ability. Spam 1 mRNA and protein will be analyzed using RNA-fluorescence in situ hybridization, confocal microscopy and fluorescence activated cell sorting. The second problem focuses on the effects of the absence, and overabundance, of Spam 1 on sperm function. Hemizygotes for the Spam 1 transgene and the null will be used to generate homozygotes whose sperm will be analyzed for various characteristics and fertilizing ability in vitro and in vivo. The studies could provide a mechanism for transmission ratio distortion and increase our understanding of the role Spam 1 in mammalian fertilization.